Using Narrative to Introduce Science Concepts to Diverse Audiences at a Science Center

9554473 Martin Under the Planning Grant Guidelines, the Arizona Science Center will explore "Using Narrative to Introduce Science Concepts to Diverse Audiences at a Science Center." By bringing together a group of experts to review key questions about the uses and structure of narrative, the staff of the science center will 1) develop a strategy and range of approaches to science storytelling, 2) develop ideas for story premises and texts to interest visitors representing diverse populations and including women, people in non-technical occupations and minority families, 3) conduct research to determine visitor's attitudes to these materials in order to learn about the appeal and effectiveness of the narratives. Finally, they will synthesize and broadly disseminate their findings. The discussion will be focused on a comprehensive set of 120 exhibits entitled "How We Live With The Sun." The topics include light and optics; heat, cooling, and convection; weather, electricity; and technologies for harnessing solar energy. These topics represent the physical science that underlies the way people adapt to the desert and the ways in which Arizonans have applied knowledge of science fundamentals to useful ends.